Differentiation of Peripheral Nerves

Moore 9514769 There are marked anatomical differences in the central nervous systems of males and females. It appears that the gonadal hormone environment may play a substantial and integral role in the development of these differences. However, a component of structural differences also appears dependent on external stimuli received during development of the central nervous system. Dr. Moore is investigating the interrelationship of factors involved in developing differences in the central nervous system. The studies involve manipulation of the gonadal hormone mixture and the environmental experiences young animals encounter. The influence of these changes on anatomical characteristics of the nervous system are probed using sophisticated neuroanatomical techniques. These investigations will provide significant information about the factors important for the development of the nervous system. Additionally, information about the role of external environmental factors on the nervous system will also be defined. This information is crucial to understanding the ability of species to survive in the wild and reproduce successfully, and ultimately thrive in their natural habitats.